Adaptive Multigrid Methods for a Multiphase Fuel Cell Model

The purpose of this project is to develop advanced computational
techniques in order to perform large-scale, state of the art
simulations of two-phase transport problems arising in proton exchange
membrane (PEM) fuel cells. Because of the complexity of the
underlying mathematical models for fuel cells, current solution
techniques are far from being satisfactory, and therefore more
efficient numerical techniques are urgently needed. While there is
still a long way before we can solve all the coupled systems
efficiently, this proposal will be devoted to solution techniques for
an important subsystem posted on the gas diffusion layers and the gas
channel. This subsystem of equations possesses a number of critical
numerical difficulties caused by anisotropy, large discontinuity,
degeneracy and nonlinearity. The goal of the proposed project is to
address these difficulties simultaneously by developing proper
discretization techniques and robust iterative methods for solving the
discretized systems. The discretization techniques to be developed
will be mainly based on adaptive finite element/volume methods and the
iterative methods will be based on multigrid techniques. The accuracy
of the discretization scheme and the efficiency of the iterative
methods for solving the discretized system will be studied.

The importance of the fuel cell technology can hardly be
overemphasized as PEM fuel cell engines can potentially replace
internal combustion engines in the future. Since a PEM fuel cell
simultaneously involves electrochemical reactions, current
distribution, two-phase flow multi-component transport and heat
transfer, comprehensive mathematical modeling and computational
simulation are required in order to: (1) understand the many
interacting, complex electrochemical and transport phenomena that
cannot be measured experimentally; (2) identify limiting steps and
components; (3) simulate dynamic responses under vehicle driving
conditions; and (4) provide a computer-aided tool for design of future
fuel cell engines with much higher power density (kW/liter) and lower
cost. The integration of the different expertise of the PI and co-PI
is expected to lead to significant progress and likely breakthroughs
in the field of fuel cell simulations. Newly developed numerical
techniques will be immediately employed in the existing library of
numerical codes that have been developed for years by the Penn State
Electrochemical Engine Center (ECEC), lead by the co-PI. It is hoped
that the new numerical techniques to be developed will lead to at
least an order of magnitude improvement over the existing methods.
Application and impact to national security/enviroment and to industries
are naturally expected for this research because of the close tie of ECEC
with national labs and automobile manufactures. Moreover, this work
will provide a unique interdisciplinary research opportunity for
graduate as well as undergraduate education.